Regulation of Abscisic Acid Biosynthesis and Deactivation

Abscisic acid (ABA), like other plant growth substances, has multiple
functions in plant growth and development. It is involved in such diverse
physiological processes as closure of stomata, and seed maturation,
dormancy, and germination. ABA also functions in response to environmental
stresses, such as drought, cold, heat, and salinity through its ability to
induce expression of specific genes whose products ameliorate the effects
of such stresses. Biosynthesis of ABA is stimulated during water stress, so
there is a large increase in ABA content during drought. Following
rehydration, ABA is rapidly degraded to phaseic acid (PA). To understand
the many roles of ABA in plants, it is essential to know how its
concentration is regulated at the tissue and cellular levels. ABA is
synthesized from epoxy-carotenoids (C40) by oxidative cleavage to form
xanthoxin (C15) and C25-apo-aldehydes. Xanthoxin is further converted via
ABA-aldehyde to ABA. In previous work, a gene encoding the cleavage enzyme,
9-cis-epoxy-carotenoid dioxygenase (NCED), was cloned from bean and
avocado. Analysis of expression of this gene at the mRNA and protein levels
showed that the cleavage reaction is the limiting step in ABA biosynthesis,
being strongly induced in dehydrated bean leaves and ripening avocado
fruit. At present, the endogenous carotenoid substrate of the cleavage
reaction is not known. Carotenoids are part of the pigment-protein
complexes in the thylakoid membranes of the chloroplast. In future work,
thylakoid membranes will be fractionated and analyzed to determine which
component provides the substrate for the cleavage reaction, and to isolate
native cleavage enzyme from dehydrated leaves. The promoter of the NCED
gene from bean will be fused to the reporter gene encoding
green-fluorescent protein and introduced into Arabidopsis. In these
transgenic plants, expression of the cleavage enzyme will be monitored at
the organ and cellular levels to determine when and where the cleavage
enzyme is expressed. In further work, the gene encoding the cleavage enzyme
will be expressed in transgenic plants under the control of a constitutive
or inducible promoter to determine whether the ABA level can be increased
permanently with a constitutive promoter, or transiently with an inducible
promoter. Manipulation of ABA metabolism may produce plants with raised ABA
levels that are better adapted than normal plants to grow under stressful
conditions. However, ABA causes its own deactivation by inducing ABA
8'-hydroxylase activity, which converts ABA to PA. It is conceivable,
therefore, that in plants overexpressing NCED, ABA homeostasis is
maintained due to ABA deactivation.